Group Travel to International Conference on Contemporary Topics in Nuclear Structure Physics; Cocoyoc, Mexico; June 9-14, 1988

This International Conference on Contemporary Topics in Nuclear Structures to be held in Cocoyoc, Mexico, 9-14 June 1988 will bring together active researchers to discuss current developments, to identify outstanding problems and explore new methods of attack, and to assess future directions for research. The conference is being organized to attract a large number of young scientists and a significant representation from Latin American scientists.